Colorado College -- Integrated Science Teacher Enhancement Program (CC-ISTEP)

9355581 Kuerbis The Colorado College-Integrated Science Teacher Enhancement Program (CC-ISTEP) is a comprehensive teacher enhancement effort that also supports a new graduate degree for teachers. The objectives of CC-ISTEP include: Bring together Colorado College faculty and local educators to design theme-based institutes. Establish a network of faculty and regional educators to support the improvement of science teaching and learning in k-8 settings. Improve the teacher-participants' understanding of science and use teacher development principles to ensure long-term changes in pedagogical skills. Use CC-ISTEP as a model for teacher development at other colleges. Over four years, Colorado College faculty and local educators plan and implement theme-based, six week summer institutes. Participants are Colorado (or adjacent) K-8 teachers. Follow-up academic year seminars support the implementation efforts of the teachers. Dissemination conferences, open to ten national teams are held in the third and fourth summers.